International Integrated Microdata Series

This research project will enrich and expand the Integrated Public Use Microdata Series (IPUMS). IPUMS is the world's largest population database, with information describing over one billion individuals drawn from 365 censuses and surveys taken in 94 countries. The extraordinary growth and redistribution of population and economic resources are reshaping the planet. To meet the challenges created by rapid demographic, economic, and environmental change, researchers must have full and open access to the best possible information. This project will expand the geographic and chronological coverage of the database, preserve it for future generations, and make the data available to users around the world. IPUMS data already have stimulated new research that transcends national boundaries and static interpretation. The data are broadly used by national and international agencies to inform policy. This project will enhance scientific understanding of critical policy-related issues such as population aging, international migration, climate change, and the effects of government programs on economic development and well-being. The project will promote teaching, training, and learning through three mechanisms. IPUMS will provide online data analysis and promote the sharing of curricular materials. Training workshops will be conducted, and the research team will further develop online training modules on how to use the data. The project will continue to employ a diverse group of graduate and undergraduate research assistants, including members of underrepresented groups, who will develop valuable skills in an interdisciplinary environment.

This research project will conduct five major activities. First, the research team will obtain and preserve the newest data as soon as they become available and seek out data from the 1960s through the 1980s that are at risk of destruction. Second, the research team will clean and process the data, drawing samples, correcting errors, applying confidentiality edits, and coding the data consistently across countries. Third, comprehensive documentation will be developed to guide users on the meaning of census and survey responses and their comparability across time and space. Fourth, the research team will maintain and improve the data access system. Fifth, education and dissemination activities will be expanded. IPUMS also will undertake activities designed to strengthen relationships with partner statistical agencies and promote long-run organizational sustainability. These activities will multiply the quality, quantity, accessibility, and interoperability of information about the changing human population, creating a transnational resource of unprecedented power for understanding human society on a global scale.